Dissertation Research: Biotic Interactions and Mycorrhizal Dynamics in Drought-Stressed Pinyon Pine

Project Summary:
Current global climate change models predict increases in the frequency and intensity of
drought in the southwestern U.S. In pinyon-juniper woodlands, we hypothesize that drought stress
leads to increased competition between pinyon and juniper, greater dependence of pinyon on
facilitative nurse plants, and changes in pinyon ectomycorrhizal (EM) fungal abundance and
community structure. Because EM fungi can alleviate environmental stress by increasing water and
nutrient uptake by the host plant, it is important to understand factors that affect these mutualists.
The goal of this project is to examine how competition and facilitation affect pinyon survival and
growth, as well as their EM fungi. We will use a combination of field experiments, greenhouse
studies, and molecular tools (RFLP analysis and DNA sequencing) to identify EM fungal species.
The results of our study will 1) quantify EM fungal diversity and distribution in pinyon-juniper
woodlands, 2) provide data on plant responses and EM fungal community shifts in response to
competition and facilitation, and 3) contribute to the current library of EM fungal sequences.
Because many of these fungi can only be identified with molecular tools, the latter objective is
necessary to allow comparisons of ecological data on fungi from different locations to begin to
understand the factors that affect their abundance and distribution.